ITR: Feedback Control of Dynamic Computing Systems

Software systems have become increasingly complex, and are expected to
provide service over wide operating ranges. To meet service goals,
software developers provide many tuning parameters that must be
set carefully for the system to provide acceptable performance and
functionality. Tuning these parameters adequately often requires extensive
trial-and-error experimentation by system administrators. As workloads and
operating conditions continually change, the parameters must be endlessly
re-tuned to provide good performance.

This research project will apply feedback control to automate this
parameter tuning loop in two example systems. The first, a wide-area
replicated file system, provides variable consistency and performance
through optimistic concurrency control. Feedback will be used to schedule
replica reconciliation and data migration to provide acceptable
performance and consistency to end users. The second system, a database
engine, offers a large variety of tuning parameters to be considered.
Feedback control will be used to enable database administrators to manage
the growing complexity of their server systems.

From these two examples and other work, a framework for feedback control of
dynamic computing systems will begin to emerge. This framework will enable
future computing systems to offer reliable and robust operation and
predictable performance, without costly maintenance and continual manual
tuning.